Geometric Group Theory via Geometric Combinatorics

The goal of this project is to bring various classes of groups
commonly studied by geometric group theorists (such as Artin groups,
one-relator groups, small cancellation groups, word-hyperbolic groups,
fundmental groups of ample twisted face pairing 3-manifolds, etc.)
within range of one of the standard general theories (such as
piecewise Euclidean spaces of nonpositive curvature, conformal
nonpositive curvature, or Garside structures) by constructing
appropriate complexes on which they act. For example, there are
emerging strategies for constructing high-dimensional nonpositively
curved cube complexes for metric small cancellation groups as well as
for fundamental groups of ample twisted face pairing 3-manifolds, for
constructing 2-dimensional conformally CAT(0) complexes for
one-relator groups, and for constructing Garside-like structures for
arbitrary Artin groups. Geometric and enumerative combinatorics play
a prominent role in the constructions themselves as well as in the
establishment of their major properties. In each case, the complexes
constructed and the approaches themselves are new and innovative and
their key properties are in the process of being established. Early
indications are that these complexes carry geometric and combinatorial
structures which would resolve such longstanding conjectures as the
coherence of one-relator groups, and the solution of the word problem
for Artin groups.

This project lies at the interface between geometric/combinatorial
group theory and geometric/enumerative combinatorics. The former
studies algebraic structures associated with geometric objects (such
as their group of symmetries) while the latter can be roughly defined
as the study of things which can be described using only a finite
amount of data. This is precisely the type of mathematics that
computers can do. Computational mathematics might seem far removed
from geometric considerations, but there is a growing collection of
combinatorial phenomena which can best be viewed as finite analogues
of facts about the curvature of smooth spaces. The primary goal of
this project is to use these computationally discovered combinatorial
phenomena to construct complexes which carry a geometric/topological
structure which then explain the observed algebraic behavior of the
original groups.